NSF FF: Planning: Hands-on and on-screen AI literacy for middle-school learners

This FINDERS Foundry award supports the co-design of a concept-first AI-literacy package for grades 6–8, built around image classification. Students treat AI as a “magical black box,” and the prerequisites for moving past surface-level use are steep. This is compounded by the lack of adults AI literacy to reinforce deeper learning. The project expands mechanism-level AI understanding for middle-school learners and the non-CS-trained adults around them through a comprehensive wireframe set that includes lesson-flow diagrams, simulator screen designs, and adult-companion explainers. Outcomes include giving students early exposure to how AI works and strengthening STEM education for a digital, AI-driven future.

This FINDERS Foundry award fosters a fundamental mechanism level understanding of AI for all learners and learning communities. The proposed solution is a co-designed wireframe set including lesson-flow diagrams, simulator screen designs, and adult-companion explainers, for a concept-first AI-literacy package for grades 6–8. The package integrates three components: physical-first, off-screen activities that establish how a model learns from data before any device is opened; a paired browser-based simulator that reveals the same mechanism on real images, including how it fails; and a plain-language explainer for each lesson for an adult so parents and teachers can follow it too. The wireframe separates surface AI fluency from genuine understanding of what a model is doing to reinforce AI literacy and learning.